Mixed Conducting Membrane for Isobutylene Synthesis from Butane

III-9362167 Eltron Research Inc. James H. White ABSTRACT Solid electrolyte membranes of ammonium/hydronium SYMBOL 98 \f "Symbol" -alumina and hydronium SYMBOL 98 \f "Symbol" -alumina doped with divalent transition metal ions will be fabricated. An electrochemical reactor utilizing the new membranes is to be constructed and tested for the oxidation of butane to isobutylene. Isobutylene is an important intermediate for the industrial synthesis of a fuel additive. New methods for the preparation and isolation of isobutylene are needed to help meet the automotive needs of the public while meeting federal regulatory requirements. rconducting unproven visiometer zeolite zeolites zirconia nonspherical oligomeric organics oxidations para penetrant perfluorinates perfluorovinylmoniliformin perovskites pervaporation photocatalysis phthalimide poly polyolefins polyquinoline polyquinolines radiative reflectometry remediation resistances selectivities semi sol solubilities solIII-9362167 Eltron Research Inc. James H. White ABSTRACT Solid electrolyte membranes of ammonium/hydronium SYMBOL 98 \f ! " 7 8 ! ! ! D ( Times New Roman Symbol & Arial s 9 9 " h c E c E 1 Nichelle T. Coward Dana Brigham